The Development of Specific Research Initiatives under The Human Capital Initiative

The Human Capital Initiative coordinating committee will organize working groups to prepare specific research initiatives in six areas of broad national concern. These areas are productivity in the workplace, schooling and literacy, the aging society, drug and alcohol abuse, health, and violence in America. The overall plan to focus basic and applied psychological research attention on these significant problem areas was developed over the past two years through summit meetings of representatives of over 50 behavioral and psychological science organizations. Each initiative will define tangible problems in the real world, describe current knowledge and provide examples of successful psychological research relevant to the problems, identify key issues that can feasibly be investigated and ameliorated within the next decade, and summarize the potential benefits of the proposed research.